A RAD 3-D Seismic Experiment

9633774 Kent This is a grant proposal for a 3-D multichannel seismic reflection and tomography survey along the EPR at 9N to test competing models of magmatic segmentation beneath a fast spreading ridge. This would be the combine 3-D seismic reflection and tomography experiment to be conducted along a MOR. Cots will be share with the UK.